Nonlinear Dispersive Equations

March 6, 2002

PI: Gustavo Ponce. DMS-0140023

Proposal title : Nonlinear Dispersive Equations.

In recent years there has been a significant progress on
the study of qualitative behavior of solution to nonlinear
dispersive systems. The relation between dispersive and nonlinear effects
has motivated several remarkable works. Among them one finds
sharp local and global wellposedness theories under minimal regularity
assumptions on the data, precise blow up results as well as ill-posedness
ones. As a consequence our understanding of several phenomena in nature is
now more complete. The principal investigator will focus on several
representative problems connected with partial differential
equations arising in wave propagation and fluid mechanics.

The wave propagation in diverse mediums and the interaction of
different kind of waves can be modeled by complicated systems of
partial differential equations. These systems involve many variables
which depends of the particular physical setting of the problem. In many
cases, these systems are too complicated to be treated with reasonable
accuracy, thus one has to consider approximated models. The validity of these
approximations is essential to further study of the physical phenomenon. One
has to give precise conditions under which the qualitative behavior of the
solution of these approximated models captures the features of the physical
setting. It is here where the theoretical study of these solutions become
essential. Thus, one starts with special solutions and its properties,
stability, long time behavior, ill-posedness, etc. In situations where these
theoretical results are unavailable one needs to start the study with
appropriate numerical simulations.